Correlative Studies of Dayside Transients

This is a proposal to study transient events in the dayside magnetosphere by comparing theoretical predictions with simultaneous solar wind, magnetospheric, and ionospheric observations. These dayside transient events are believed to be the signatures of entry of solar wind plasma into the magnetosphere. The ultimate goal is to determine which ground observations can be used for remotely monitoring magnetopause interaction processes.